Ship Operations

Columbia University, Lamont-Doherty Geological Observatory will operate the R/V BERNIER during 1990 as a general oceanographic vessel in support of NSF-funded research projects. The R/V BERIER is a 72.5 meter (254') general research vessel with special capabilities for geophysical research. The ship was constructed in 1983 and is currently owned by the Trustees for Columbia University in the City of New York. The recently purchased R/V BERNIER will replace the R/V CONRAD which was retired in 1989. The R/V CONRAD was successfully operated and maintained by LDGO for over ten years. The R/V BERNIER will conduct operations worldwide. This vessel is part of a fleet used by the National Science Foundation to support oceanographic research projects. Most oceanographic research projects require highly specialized equipment and extensive support from a ship's crew members. An increasing number of research projects require equipment that must be permanently installed on a ship and for which the ship must be specifically designed. Such equipment also requires highly trained crew members for maintenance and operation. These vessels do not operate in the same manner as general cargo or fishing vessels, and therefore, NSF supports the operation of a variety of vessels specifically dedicated to oceanographic research. These vessels are operated by universities and research institutions around the country.